Equipment to Advance Education and Research in Climatology/Meteorology at the University of Georgia

Abstract ATM-9527098 Thomas L. Mote and Vernon Meentemeyer University of Georgia Research Foundation, Inc. UNIDATA: An Equipment Request to Advance Education and Research in Climatology/Meteorology at the University of Georgia. Funds will purchase two X-terminals and an overhead projection system for use in student weather briefings, class lectures, and research presentations. Extra disk storage is also necessary to enable the creation of an archive of selected surface and upper-air observations. The equipment will be used primarily within the Climatology Research Laboratory and will enhance the education of students and provide the university with the means to access new research projects and fully participate in the UNIDATA community.